EAGER: Cloud-Computing and High-Speed Internet Enabled Manufacturing

The research objectives of this EArly-concept Grant for Exploratory Research (EAGER) award are to explore how emerging next-generation information technologies (IT) can be used to transform current and suggest new manufacturing service scenarios for increased accessibility, flexibility, efficiency and quality in the manufacture of single components and comprehensive products; and to identify current bottlenecks and suggest possible solutions for a significantly higher degree of utilization of these technologies in manufacturing. Several plausible futuristic manufacturing scenarios under the theme Cloud-Manufacturing, will be explored. The planned research tasks are: (1) Detailed delineation, characterization and quantification of manufacturing scenarios; (2) New network protocols; and (3) Semantic manufacturing-web and cloud computing requirements and advances.

If successful, this project will bring together experts in the area of manufacturing, computer networks and web-based programming to lay out a blueprint of enabling technologies and architectures for the envisioned futuristic Cloud-Manufacturing paradigm. The work will define future needs for Cloud-Manufacturing in terms of communication, data storage and processing needs. These needs will, therefore, pertain to both software and hardware developments. The work will stimulate more exciting research in the manufacturing, electrical engineering and computer science communities that could potentially lead to new manufacturing paradigms and many start-up companies. This project will offer graduate students multi-disciplinary training and collaborative experiences. Results will be disseminated through workshops, conferences and archival publications.